Lithium Isotope Compositions of Hawaiian Lavas: A Study of Source Components

9903197
Chan
The Hawaiian chain is an important example of hot spot volcanism. Shield
lavas exhibit considerable variation in chemical and isotopic composition.
The compositional diversity reflects distinct source components in the
mantle and interaction of the mantle plume with lithosphere and the upper
mantle. This project introduces lithium isotopes as a new isotopic tracer
for the study of ocean island basalts. Recent developments of mass
spectrometric techniques have led to precise characterization of lithium
isotope compositions of marine reservoirs. Lithium isotopic data of
seawater, fresh and altered ocean crust, marine sediments, and mantle
peridotite are available to evaluate the origin of Hawaiian lavas. The
proposed study will focus on lavas from four volcanoes: Koolau, Mauna Kea,
Mauna Loa and Kilauea. Koolau and Mauna Kea are considered to be extreme
compositional endmembers in Hawaiian volcanoes. Isotopic evidence suggests
that Koolau lavas represent plume material enriched with recycled oceanic
crust and sediments , whereas Mauna Kea lavas has incorporated melts of
recycled hydrothermally altered lower crust. The objectives of the lithium
isotope study are to identify source material in the Hawaiian plume,
including recycled components from the subducted oceanic lithosphere and
sediments, and to trace the isotopic evolution of the magmas with time
using drill core samples. In a broader sense, this study addresses the
issues of isotopic heterogeneity in the mantle, melt-lithosphere
interaction, and recycling of subducted crustal material.